Support for the Gordon Research Conference on Coastal Ocean Circulation

Partial funding is provided for the support of a workshop (Gordon Research Conference) on coastal ocean circulation. Twenty-two invited talks and a series of contributed poster presentations will be made. These will cover a breadth of topics in coastal ocean circulation occurring on a variety of space and time scales. Related topics in coastal meteorology and biogeochemical-physical interactions will also be discussed. The priority use of the funds is to defray travel and attendance costs for young investigators.